Upgrade of the High Resolution Electron Microscope

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Chemistry Department at Princeton University will upgrade their high resolution electron microscope. This equipment will facilitate research in the following areas: a) the application of structural analysis by electron diffraction of nanometer-size crystals of transition metal oxides; b) the use of electron diffraction to determine the structure of beam sensitive biochemical compounds important in photosynthesis; and c) the use of exit wave reconstructions from through focus high resolution electron microscopic images to determine atomic arrangements with a much higher accuracy.

This equipment will have a significant impact on cutting-edge research projects across a wide range of disciplines at Princeton, including materials chemistry and biochemistry. In addition, the equipment will make the instrument more user-friendly, so that it will be more accessible to students. The PI will introduce a new course in structure determination using high resolution transmission electron microscopy.